Conference: Trailblazer Engineering Impact Award Workshop

This award will support a workshop to bring together principal investigators supported by NSF Trailblazer Engineering Impact Award program, also known as NSF Trailblazer. The principal investigators are thought leaders on topics ranging from biotech and robotics – areas of national need that are important for U.S. leadership in high technology. Over the two-day event, the principal investigators will brainstorm future research directions in high technology areas important for the U.S. The workshop will also include students of principal investigators and involve them in the visioning process. These discussions will promote a culture of creativity and risk-taking that align with the NSF mission to advance U.S. leadership in science and engineering.

The Trailblazer Engineering Impact Award (NSF Trailblazer) Workshop will bring together current awardees of the NSF Trailblazer program for two days of structured dialogue and collaboration. The workshop will provide a dedicated forum for sharing transformative research directions, exchanging lessons learned, and exploring convergence opportunities across diverse engineering domains that address national research needs in emerging technologies, particularly in diverse areas of bioengineering, hazards & resilience, quantum science & computing, semiconductors, and robotics. Through presentations, interactive sessions, and collaborative activities, participants will collectively articulate emerging themes and future research visions aligned with the goals of the NSF Trailblazer program. By amplifying communication and collaboration within this unique community, the event will accelerate the translation of bold ideas into impactful directions and inform future priorities for transformative engineering. Outputs such as a collaboratively authored perspective document and recorded sessions will extend the reach of these discussions, promoting a culture of creativity and risk-taking that aligns with the NSF mission to advance U.S. leadership in science and engineering.